Structural and Biochemical Investigations on Fe-Only Hydrogenases

The main objective of this projectl is to investigate the structural and catalytic
properties of Fe-Only hydrogenases. Hydrogenases catalyze reversible hydrogen
oxidation and function physiologically to either recycle the reduced electron carriers that
accumulate during a fermentative metabolism or couple the oxidation of hydrogen to the
generation of reduced electron carriers that can be utilized in energy yielding processes.
The metal-containing hydrogenases are classified according to their metal content and
include those that contain both Ni and Fe (NiFe-hydrogenases) and those that contain just
Fe (Fe-Only hydrogenases). These enzymes are of paramount importance in the
metabolism of numerous microorganisms. In addition, since hydrogen is being explored
as a future alternative fuel source, there is considerable interest in the details of these
hydrogen producing biological catalysts. The studies will focus primarily on testing hypotheses that
were developed as a result of the detailed structural analysis of the Fe-Only hydrogenase
(CpI) isolated from the anaerobic soil microorganism Clostridium pasteurianum. The specific objectives are (1) additional structural and biochemical studies on CpI probing a number of remaining key questions with respect to the H Cluster structure and the role of the accessory [FeS] clusters; (2) site-specific
amino acid substitution experiments on CpI to examine the role of the polypeptide
environment of the H Cluster in catalysis and stability; (3) structural characterization of
the second Fe-Only hydrogenase (CpII) from C. pasteurianum to ascertain its primary
sequence and structural relationship to other Fe-Only hydrogenases and to probe the
contributions of the environment of the H Cluster and the accessory FeS clusters in
defining hydrogen oxidation versus proton reduction activities in the Fe-Only
hydrogenases. The above objectives will be pursued by a multidisciplinary approach combining
biochemical methods, spectroscopic methods and structure determination by X-ray
diffraction methods to answer some of the key remaining questions with respect to the
structure and function of Fe-Only hydrogenases.